A Joint ECOHAB - EUROHAB Workshop

This proposal seeks funding for partial support for a joint U.S. ECOHAB-European EUROHAB workshop. The goal of the workshop is to bring scientists from the U.S. and the European community together to exchange information on harmful algal events, identify high priority research topics for collaborative efforts, and to specify research objectives and approaches to developing a predictive understanding of harmful algal blooms. The Europeans are requesting comparable funding from the European Union (EU) for this effort. The workshop is to be held in September 2002, along the northern Adriatic, with 30-40 scientists in attendance.